Molecular Studies of Cospeciation Enhanced by Exhaustive Sampling and GIS Technology

ABSTRACT
This project will continue an in-depth exploration of two organisms that
have lived together for many millions of years, namely chewing lice (a group
of parasitic insects) and their mammalian hosts (pocket gophers). Previous
studies of this host-parasite system by the PI and colleagues have provided
new insights into how organisms live in long-term symbiosis and has advanced
our knowledge of rates of molecular change in insects versus mammals. This
project will take a new and different approach to host-parasite studies by
analyzing cospeciation at a previously unexplored scale augmented by use of
GIS (Geographic Information Systems) technology. Analysis of cophylogeny
(parallel speciation in the hosts and parasites) will use DNA sequences from
both nuclear and mitochondrial genes. Recently developed methods will be
used to compare rates of molecular evolution among genes, genomes, and
species to identify gene-specific, genome-specific, and lineage-specific
rate differences. GIS technology will be used to develop and test predictive
distribution models (3ecological niche models2) for each species of pocket
gopher and each species of louse examined in this study. Finally, this
project will establish Louisiana State University (LSU) as an active node in
the worldwide louse database (LouseBase), into which will be deposited all
louse data generated in the course of this research.

Data generated in the PI's studies of the gopher-louse system continue to be
used widely in development of analytical methods and software for analysis
of host-parasite systems (e.g., Huelsenbeck & Rannala, 1997; Huelsenbeck et
al., 1997; and the programs COMPONENT and TREEMAP developed by Roderic
Page). This work has also been featured in at least 8 books and textbooks,
including Parasitology (Noble et al., 1989), A Functional Biology of
Parasitism (Esch & Fernandez, 1993), and Evolution (Ridley, 1996). Thus,
this work has reached a large number of graduate and undergraduate students.
The proposed project has an explicit plan to involve students as
collaborators in the research. This includes undergraduates, graduates, and
postdocs at LSU, collaborators and their graduate students in Mexico, and
undergraduate students at the University of Northern Iowa (UNI), which is a
subcontractor on this project. Students at UNI will be trained in the
fundamental, yet rapidly disappearing, skills of parasite taxonomy and
identification, insect microscopy, and use of the digital microscopy imaging
system for specimen documentation and morphological analysis. Students will
also be exposed to the total breadth of the proposed research program
through intensive, 10-day, summer workshops in the molecular lab at LSU.
These workshops will not only train the students in the molecular techniques
involved with the proposed research, but will also expose them to the
workings of a larger research laboratory. This kind of exposure and
experience is essential to encourage quality students to pursue careers in
non-medical basic research.